Purchase of a Circular Dichroism Spectrometer

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Emory University will acquire a Circular Dichroism Spectrometer. This equipment will enhance research in a number of areas including a) the design of polypeptide materials of precise and controllable molecular structure (Conticello); b) studies on flavoenzyme systems (Edmondson); c) peptide structure and self-assembly (Lynn); d) transition metal-DNA interactions (Marzilli); and e) bio-organic chemistry of protein-DNA complexes (Mohler).

Circular dichroism spectroscopy is an extremely useful tool in modern analytical chemistry. It provides a very reliable and sensitive method for assigning absolute molecular configurations. The results from these studies will have an impact in a number of areas, in particular, biochemistry.